Methodology for Rapid NMR Data Acquisition in Structural Genomics

This project focuses on the implementation of novel methodology for rapid collection of multidimensional NMR data by extending the repertoire of GFT NMR experiments suitable for 13C/15N stable isotope labeled proteins and nucleic acids and developing GFT NMR experiments that incorporate the single scan acquisition scheme. To further reduce the sampling demand of GFT NMR, processing of GFT NMR data will be optimized by using either Maximum Entropy Reconstruction or Three-way Decomposition. User-friendly employment of the new NMR experiments will be ensured by implementing software for efficient analysis of GFT NMR spectra. The creation of a package of NMR parameter sets will enable efficient dissemination of research results.

The broader impacts resulting from these activities are increased efficiency with which NMR-based structural biology and genomics can be pursued and an increase in the return of investment into costly high-end NMR hardware and genome sequencing projects. The research program will offer opportunities to students.